Millstone Hill Radar Investigations of Upper Atmosphere Processes and Dynamics

This award provides support for the operation and maintenance of the Millstone Hill UHF Atmospheric Sciences radar for a program of incoherent scatter investigations of upper atmospheric structure and dynamics. Radar operations of approximately 900 hours per year will be carried out with emphasis given to the multi-radar experiments which constitute the international World Day and CEDAR programs. Other multi- radar operations as proposed by the radar user community and as well as single-radar investigations of phenomena specific to Millstone Hill's location at sub-auroral latitude will be pursued. The World Day program includes detailed studies of the high and mid-latitude thermosphere and electrodynamics as well as synoptic experiments which provide a rich data base for a variety of upper atmospheric research topics. Support is provided for the related research of the Haystack Observatory Atmospheric Sciences Group, who staff the radar and direct its operation.